Magnetic Domain Structure Calculations in Magnetites with Defects

This project studied the magnetic effects associated with microstress in magnetites and titanomagnetites. It continued to extend domain structure calculations by including defects. In addition, theories were developed to relate macroscopic parameters (e.g., bulk coercivity) to microscopic ones (e.g., microscopic coercivity) to microscopic ones (e.g., microscopic coercivity).